Advanced Measurement Techniques for Accuracy and Resolution

Undergraduate students in the Electronics Engineering Technology program at St. Petersburg Junior College have now the opportunity of being active learners in three required laboratory courses. Newly acquired digital storage oscilloscopes and logic analyzers enable the students to perform a series of hands-on experiments to master the principles and practices associated with use of modern equipment to increase the accuracy and resolution in electronic measurements. Three required laboratory courses in digital circuits, electronic instrumentation, and automatic control, are being revised to accommodate the new equipment and learning opportunities. Additionally, a state-of-the-art laboratory course devoted to Advanced Electronic Instrumentation is being developed and utilizes the new equipment. The laboratory experiments conducted in these laboratories help students increase their problem-solving skills related to advanced measurement techniques necessary for accuracy, resolution, and storage for the analog-to-digital conversion circuits and microprocessor-based technology.